Human Interface Design for Access to Computers and Networked Information - Panning for Gold: Information Discovery on the Information Super-Highway

9554517 Sameh This proposal outlines a plan for recruiting and training a set of high-quality graduate students focusing on the important area of information discovery on the information super-highway through human interface design for access to computers and networked information. The plan builds upon faculty excellence in this area to create a focused program of research that will make Minnesota a leader in this emerging area. The plan also contains several inlovative components that will ensure that we can recruit top- quality students, including women and students of color, who are currently severely underrepresented in computer science. And, it provides a complete graduate experience for these students including industrial internships, training and practice in teaching, and a supportive, mentored environment. At its completion, this program will produce PhDs that are fully capable of becoming productive faculty members at research universities and top- ranked colleges. In the process, we hope to establish a pipeline bringing the best graduates from Howard University and Vassar College to the University of Minnesota for graduate degree.